Capital Area Theory Seminar

Basic research in theoretical computer science is studied. Fundamental questions, about the analysis of algorithms and complexity theory are researched. This seminar series focuses on inviting distinguished outside speakers who are able to give an overview of a research area to first and second year graduate students. It is hoped that the interaction between graduate students, researchers in the DC metropolitan area, and outside visitors will be very productive and useful in stimulating new research and facilitating new collaborations. Students will also get an opportunity to present their work to the faculty. A special effort will be made to involve honors undergraduate students in this endeavor.